An Investigation of Canada's Inuit Resettlement Programs

This dissertation focuses on Canadian government programs of resettlement of Inuit (Eskimo) communities: from Port Harrison to Resolute Bay and Grise Fiord (1953-55), Ennadai Lake to North Henik Lake (1957-58), Nutak and Hebron to southern Labrador (1956-59), and Killiniq to northern Quebec (1978). Field and archival research will focus on government use of resettlement for sustainable development, impacts on health, economic welfare, intergroup relations and social change. The goal is to gain an understanding of the political processes involved at the time and the long-term social and economic effects of relocation on native populations in the Arctic.